Collaborative Research: Building a Community of Learners/Scholars to Develop, Assess and Disseminate Educational Materials/Teaching Practices in Machine Learning: Expand EMD-MLR

Computer Science (31)

The collaboration between the Florida Institute of Technology and the University of Central Florida is building a machine learning community of scholars and learners. They are introducing two undergraduate courses at the host universities, involving undergraduate students in machine learning research, and creating a curated repository for machine learning materials. These materials are being evaluated by a set of seven institutions around the country and the assessed materials are being disseminated nationally.